Mathematical Sciences: Research Experience in Computational Group Theory

This award will provide support for an REU site award supporting six students who will be engaged in mathematical research combining elements of abstract algebra - group theory - with concepts from probability theory. The primary tool underlying the work is the high level programming language CAYLEY designed around the algebraic concepts of structure, set and mapping which uses an extensive data base of group theoretic and geometric information. The program allows users to define structures from which one may then extract information. Problems which will confront the students fall into two classes. The first concerns what are called typical values in sampling theory, focusing on the amount of information about population means that one can obtain from information about subsample means (typical values). With respect to symmetric differences, the subsamples may form a group. The group structure is both necessary and sufficient to produce the typical values. The second class of problems concerns group structures which are not abelian but allow for quantitative studies of how near or far the groups are from being abelian. There are many questions one can pursue in this area which can lead to new discoveries about existing groups as well as an appreciation for the fundamental nature of group concepts such as cosets, conjugacy classes and subgroups.